Stochastic Models of Asset Valuation in Markets with Frictions

DMS 0102909
PI: Thaleia Zariphopoulou

In most market models, the classical assumption of a perfect market
is not satisfied. The PI proposes to continue her research program
to develop methods to study valuation problems in incomplete
markets, concetrated in the following class of applications:
i) optimal asset allocation under market frictions the goal being
to derive and analyze the optimal risky demand and to represent the
value function in terms of distorted measures, ii) valuation of
derivatives written on nontraded assets with the goal to use
utility-based pricing methodology to specify the hedging strategies
and to expole their role in risk aggregation, iii) dynamic hedging
of volatility risks the goal being to specify the arbitrage-free
components of the implied volatility process and to study their
implications to the dynamic management of volatility risks, and
iv) asset valuation under irreversible decisions with the goals
being to evaluate early exercise instruments under constraints
related to irreversible decisions and to analyze the impact of
irreversibilities to prices and optimal demand. The technical
tools come from stochastic analysis, stochastic control and
nonlinear partial differential equations.

In most market settings, the classical assumption of market
completeness is not satisfied and, therefore, the traditional
approach of perfect replication cannot be applied. It becomes
hence necessary to review the pricing and risk management concepts.
The first step is the development of a unified framework to
analyze the inherent market risks, and identify the components that
can be hedged away and the ones that cannot. The second step is the
establishment of a coherent method to price the unhedgeable risks
in order to achieve effective risk management. The PI proposes to
continue her work in market models with frictions along the
aforementioned two general directions. The proposed methodologies rely
heavily on the classical economic principles of utility theory which
reflect the investors' preferences towards the risks that cannot be
eliminated. Among others, the PI proposes to study models of asset
allocation, derivative pricing and risk management under various market
frictions including stochastic volatility, nontraded assets and
irreversible management policies.